Travel to Attend: Third International Conference on Tall Buildings; Hong Kong & Guangizhou, China; December 10-15, 1984

Travel support will be provided to allow a participant to deliver a paper at the Third International Conference on Tall Buildings to be held in Hong Kong and Guangizhou, China, from December 10-15, 1984. The conference will provide an international forum for the exchange of scientific information on the design and construction of buildings.